Has Inquiry Made a Difference? A Synthesis of Research on the Impact of Inquiry

The primary applied research question posed by this project is: " What is the impact of inquiry science on student outcomes compared with the impact of other instructional strategies and approaches?" The project will: 1) identify studies to be included; 2) review and organize the studies into clusters; 3) code and analyze studies within and across clusters; 4) prepare written reports and articles and 5) disseminate findings to researchers, reformers, educators, parents and the general public.